Large Scale Property Fluxes in the North Atlantic

Speer/Tandon

Funding is provided to estimate large scale fluxes of mass, heat and salt in the
North Atlantic using air-sea forcing data and WOCE (World Ocean Circulation
Experiment) and historical hydrographic data . An inverse model will be used to
estimate isopycnal and diapycnal fluxes together with their errors. The goal is to
identify important processes controlling these fluxes. The PI's will also participate
in the development of an atlas of Atlantic WOCE hydrographic data as part of the
Analysis, Interpretation, Synthesis and Modeling phase of WOCE.